U.S.-Germany Cooperative Research: Fiscal Crises in Local Government: Comparative Evidence from Two Federal Systems

0089650
Hallerberg
This award supports Mark Hallerberg and students from the University of Pittsburgh in a collaboration with Juergen van Hagen of the Center for European Integration Studies at the University of Bonn, Germany. The research focus is on causes and consequences of fiscal crises that can occur at the local-government level, which poses a greater problem in an era of increasing decentralization. The project will examine crises in the two traditional federal systems in the U.S. and Germany, and, in particular, the intergovernmental relations between the state and local levels. The treatment of local fiscal crises in existing federal systems cans serve as models for other countries as the decentralize. This joint collaborative research effort also presents junior researchers with the opportunity to work internationally, and the work done on this proposal will help institutionalize the relationship between the German and U.S. research groups.